Collaborative Research: Fire, Climate, and Forest History in Mongolia

Increased wildfires are predicted to accompany ongoing climate change. Yet, little evidence exists supporting this hypothesis. This project will examine relationships between wildfire and climate over the past four+ centuries, from the steppes of the Gobi to the taiga forests of northern Mongolia. Mongolia’s landscape, land-use history and recent history of rapid climate change make it an ideal test case for an examination of the relationship between wildfire and climate. Wildfire occurrence and severity will be reconstructed using tree ages and fire scars as recorded by tree rings. The main objectives are to: 1) test hypotheses about climate impacts on wildfires by developing a network of fire histories across Mongolia; 2) determine whether recent climate change has caused unprecedented changes in the number or severity of wildfires, and 3) potentially identify what climatic combinations could cause forest properties to change significantly from what they had been historically.

This study will increase understanding of how wildfires affect forests within the context of climate change, past, present and future. It will also complement a growing global-scale database on fire, climate, and forest histories that can assess the potential impacts of climate change on wildfires. This is important because, in some forest types, wildfire is a critical process that helps to maintain ecosystem health. Wildfires may also influence atmospheric processes and, potentially, global warming. This research will contribute to international cooperation between the U.S. and Mongolia and will include involvement of Mongolian scientists and students.